Mathematical Sciences: Arithmetic Algebraic Geometry

This grant supports the research of W. McCallum and D. Ulmer to work in arithmetic geometry. Professor McCallum will study descent on Fermat's curve. Professor Ulmer will study the p-adic valuations of coefficients of modular forms as well as the Iwasawa theory for elliptic curves. This project falls into the general area of arithmetic geometry -a subject that blends two of the oldest areas of mathematics: number theory and geometry. This combination has proved extraordinarily fruitful - having recently solved problems that withstood generations. Among its many consequences are new error correcting codes. Such codes are essential for both modern computers (hard disks) and compact disks.